Mathematical Sciences: Geometry of Period Mappings and Abelian Varieties

This awards supports the research of Professors R. Smith and R. Varley to work in algebraic geometry. They will work on computing deformations of maps and singularities and applying it to problems in the theory of Hodge structures of varieties and their moduli. The research is in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which blossomed to the point where it has, in the past 10 years, solved problems that have stood for centuries. Originally, it treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebra, but also from analysis and topology, and conversely it is extensively used in those fields. Moreover, it has proved itself useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.